Implementation Grant - Project GeNex: Educating the Next Generation of STEM Professionals

St. Philip's College, one of the Alamo Community Colleges, a two-year public college and the only nationally designated Historically Black College and Hispanic-Serving Institution, will implement "Project GeNex: Educating the Next Generation of STEM Professionals" as it aspires to improve its STEM education programs and increase the number of diverse, competitive and globally engaged STEM professionals in the nation's workforce. St. Philip's College will recruit, retain, graduate and transfer students to four-year institutions where they will complete undergraduate degrees in STEM disciplines.

Project GeNex aims to improve STEM education at SPC and increase the number of STEM professionals in the nation's workforce. To achieve this goal, three objectives will be targeted:
1) To increase the number of students who enroll as STEM majors;
2) To increase rate of course completion of STEM majors; and
3) To increase the retention rate of STEM majors.

This project is innovative in that it will provide additional opportunities to increase the recruitment, retention, graduation and transfer to universities of minority students in the STEM disciplines. Through St. Philip's College's existing relationships with high schools, universities and industry partners, Project GeNex will have the necessary framework to ensure student and project success.